Channel Mobility Degradation in Very ThinGate Oxide MOSFET's

As the gate oxide thickness of a MOSFET transistor shrinks down to below 100 A, there is strong evidence that the carrier mobility in the conduction channel is reduced systematically with gate oxide thickness. The objective of this research is to 91) experimentally establish the relationship between the channel mobility and the gate oxide thickness for both p- and n- channel devices over a wide range of thicknesses(30-200 A), with a goal toward the development of a set of empirical equations useful for future device simulations; and (2) theoretically model the thickness-dependent mobility behavior based on fundamental scattering mechanisms. In addition, important issues pertinent to the processing of very thin oxide MOSFET devices will be systematically investigated, and the results should be relevant to practical down scaling of VLSI devices.